Building STEM Teacher Leaders for Rural Schools in Southern Arizona

This project aims to address the critical shortage and low retention of STEM secondary teachers in U.S. schools, thus helping to address an important national need. Additionally, the project aims to help overcome current opportunity gaps in STEM experiences in southern Arizona. The project will support the collaboration of experienced and skilled, rural-based STEM teachers with scientists and science educators to develop educational field stations at environmental reclamation sites. These field stations are expected to provide opportunities for field trips and experiential learning for all students in southern Arizona. Thus, they have the potential to ignite a STEM spark in rural southern Arizona communities and increase public knowledge about science. A local science center will collaborate with the project to design and develop the field stations. Societal benefits of this project include advancing all student potential in a region characterized by poverty, low educational achievement levels, and a lack of STEM opportunities outside of school.

This project at the University of Arizona will include strategic partnerships between the Rural Activation and Innovation Network (NSF #1612555), Cochise County School District, Bisbee Science Exploration and Research Center, Freeport McMoRan Industries, and Cochise County Engineering, Natural Resources Division. Project goals are to provide experienced and exemplary rural STEM teachers with opportunities to build their leadership skills in three core areas: field-based instructional materials design, coaching, and collaboration. A total of 14 exemplary multi-disciplinary STEM teachers will be selected as Master Teaching Fellows for this six-year project. The project addresses knowledge gaps in informal STEM education for rural communities and builds on the knowledge base about teacher collaboration. The project tests the potential for improving STEM education through development and use of teacher-designed field stations as teaching sites for STEM subjects. It focuses on rural areas that lack opportunities for informal STEM learning. In addition, it gives Master Teaching Fellows the training and support to become classroom coaches and to lead a professional learning community, providing teachers with the opportunity to design and lead teacher development efforts for all teachers in the schools in their area. Project evaluation will use a mixed-methods approach including front-end, formative, and summative evaluation phases. Dissemination plans include research publications and conference presentations, a website that Master Teaching Fellows will design and maintain, and local media coverage. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports any talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 STEM teachers to become STEM master teachers in rural school districts. It also supports research on the persistence, retention, and effectiveness of K-12 STEM teachers in rural school districts.